NSF Minority Postdoctoral Research Fellowship for FY 1997

Award Abstract Fellow: Cheryl A. D. Wilga Proposal number: DBI 9707846 This action funds an NSF Minority Postdoctoral Research Fellowship for 1997. This fellowship supports research and training in the area of ecological and evolutionary physiology. The title of the research and training plan is "Fluid dynamics and functional morphology of pectoral fins during swimming in benthic and pelagic sharks." The classical model of shark locomotion is tested, and pectoral fin function during swimming is evaluated in sharks. Comparative ecomorphology of sharks is analyzed using fluid dynamics, kinematics, and motor pattern. The integration of functional morphology, performance (fluid flow), and ecology (realized niche) is necessary to accurately interpret the ecological role and evolution of organismal design.